Heuristic Search Techniques Applied to Nonlinear Integer Programming

This research involves the application of heuristic search techniques including neural nets, genetic algorithms and TABU search to the quadratic assignment problem. The goal is to design an intelligent system, using AI tools, to select a search method as a function of problem structure and problem data. This research area has potential for enormous pay off. Interfacing AI techniques with nonlinear integer programming is in its infancy and should be fully explored.